Low-dimensional manifolds and computation

Abstract for NSF proposal

Low Dimensional Manifolds and Computation

This project concerns problems in low-dimensional topology and geometry,
with an emphasis on computational aspects. Manifolds in two and three
dimensions provide the geometric models for many physical phenomena.
Computational issues are playing an increasing role in mathematical
investigations in these areas. Research in low-dimensional manifolds
in turn is making contributions to computational geometry and topology. It also
impacts computational complexity theory, which studies questions
such as how long it takes a computer to solve a problem. Techniques of
computational topology have already led to improvements in algorithms
in computer graphics, visualization, medical and molecular modeling
and image recognition. Several problems on the theme of computational
topology will be investigated in this project.

The computational complexity of many important problems in topology
and geometry is unknown, even when explicit algorithms exist.
Recent results have revealed intriguing connections between complexity theory,
minimal surface theory, normal surface theory and isoperimetric
problems. The project will pursue research in this direction,
examining the complexity of Knot Recognition, Knot Genus, Homology Genus
and related topological problems. The project also includes plans to
investigate the generalized theory of normal surfaces. Normal surfaces
are particularly simple surfaces relative to a fixed triangulation of
a 3-manifold. They are the analogs of minimal surfaces in the PL Category.
The collection of such surfaces is discrete and well suited
to computation, leading to applications in classification, complexity,
enumeration and algorithmic recognition. Index-one, or almost normal
surfaces, were applied with spectacular success in recent work
on manifold recognition. A third focus of the project
concerns multi-region isoperimetric problems, which ask what
are the shortest boundaries enclosing multiple regions of a
given size. The goal is to give a mathematical proof that
the configurations assumed by soap bubbles are optimal.
Questions such as finding the shortest curve enclosing three given areas
in the plane remain open. Also missing is an understanding of general
properties of stable soap-bubble-like configurations, such
as whether the minimizing configurations always have connected
regions. Finally, the project examines questions of curve
and surface evolution, using ideas based on normal surfaces.
Such evolution methods have the potential
for practical applications in many areas, similar to the many
applications of mean curvature evolution.